Circumpolar Current Studies: Participation in WOCE Indian Ocean Lines I8S/I9S

9413167 McCartney This project is a contribution to the US World Ocean Circulation Experiment (WOCE) Indian Ocean Hydrographic Program (IO WHP). The PI will provide hydrographic support and scientific leadership for the first two legs of the expedition, denoted as WOCE lines I8S and I9S, respectively. These are essentially meridional lines along 115 degrees east, and 85 to 95 degrees east between about 30 degrees South and the Antarctic continent. Specific objectives include study of the deep water circulation in the western South Australia Basin, and the formation of Subantarctic Mode Water Antarctic Intermediate Water along the Antarctic Circumpolar Current. ***